Wavelets and Applications: A Multi-Disciplinary Undergraduate Course With an Emphasis on Scientific Computing

Mathematical Sciences (21). This project is developing a multidisciplinary undergraduate course, "Wavelets and Applications," accessible to students who have completed Calculus I, II and linear algebra. Supporting materials in the form of a text, computer labs, and final projects are being created. The course is designed to use the many applications of wavelets to data and signal compression as motivational examples. Thus it begins with an introduction to discrete wavelet transforms using a filter design approach that builds on knowledge of linear algebra. Implementations of different discrete wavelet transforms permit the use of basic scientific computing methodology. This helps lay the groundwork for the study of elements of classical theory and construction of more general wavelet transformations in the latter part of the course.